Adaptive Numerical Methods for the Neutral-Particle Boltzmann Equation

9625798 This work seeks to integrate two numerical techniques for solution of the neutral particle Boltzman equation. Variational nodal methods, which combine a hybrid finite element treatment of the spatial variable with spherical harmonics expansions in angle, will be used in conjuction with adaptive grid techniques to form a powerful new approach to the simulation. Applications of this technology are anticipated in radiation therapy, radiative heat transfer, nuclear fission, and nuclear fusion.